Mathematical Sciences: Multivariate Analysis, Rank Data andMultivariate Ranks

Proposal: DMS 9504525 PI: John Marden Institution: University of Illinois Title: Multivariate Analysis, Rank Data and Multivariate Ranks ABSTRACT This research explores several areas of multivariate statistical analysis and the modeling and analysis of rank data. In rank data, several judges rank a set of objects from best to worse. Research in the analysis and modeling of such data includes evaluating distances between rank vectors by looking at the set of distances as a convex cone; extending unidimensional unfolding models to several dimensions by using orthogonal ``contrasts" of objects, each contrast being a collection of groups of objects; and using quotient groups of the group of permutations with respect to particular subgroups to represent contrasts and/or patterns of ties in rank data. Related to rank data is rank-based nonparametric analysis of variance, wherein the the cells in the design are the objects. Main and interaction effects are defined nonparametrically in multiway layouts, rank-based procedures for hypothesis testing of these models are developed, and invariance and likelihood principles are used to find universally efficient rank-based test procedures. Finally, an approach to extending univariate rank procedures to multivariate procedures, including multivariate analogs of popular univariate statistics (Wilcoxon/Mann-Whitney, Kruskal-Wallis, Jonckheere-Terpstra, Kendall tau, Spearman rho, etc.) and tests of symmetry hypotheses on covariance matrices, is detailed relying on a particular definition of multivariate rank. Iteration of the rank function may provide an approach to defining multivariate probability functions and inverse functions, with applications to generating random vectors and multivariate QQ-plots. The main focus of this research is to analyze and extend a number of popular statistical procedures. Rank data, in which a number of judges ranks a number of objects from best to worse, arise in many are as, including political science, sociology, education, psychology, and consumer preferences. Such data typically show a high degree of complexity, often due to the presence of distinct camps among the judges, natural groupings of the objects, or a continuum of possible preferences of the judges (along, e.g., a liberal/conservative continuum). New statistical models based on groupings of objects are able to capture such complexities in many cases. This research extends the scope of these models by considering multiple groupings or continuums. (There may be separate liberal/conservative continuums for social issues and for economic issues.) Related research is applicable to many fields, including agriculture, biology, economics, and environmental sciences as well as the social sciences. Most statistical studies are directed towards comparing individuals or treatments (e.g., fertilizers, drugs, educational methods) based on one or more measurement, or finding relationships between different measurements (e.g., diet and health). The basic methods depend on fairly restrictive assumptions, assumptions which often do not apply in real scientific situations. Consequently, a great amount of work has been dedicated to developing procedures which work well even when the assumptions are violated to a certain extent. It is particularly important that the procedures not fail in the presence of a few unusual values. When comparisons are based on only one attribute, rank-based procedures are easily applied and understood, and valid under reasonably mild conditions. These methods are applied by taking the data (on, e.g., cholesterol level) and replacing them with their ranks (i.e., the lowest level becomes ``1", the next ``2", etc.) It is very common to wish to make comparisons based on more than one attribute, e.g., cholesterol level and blood pressure. In such cases, ranking individuals is more problematic since their order with respect to cholesterol may not be the same as that with respect to blood pressure. A major component of this research uses a particular approach to ranking individuals on several attributes simultaneously. Procedures are developed based on these rankings that parallel those for single attributes. These methods are easy to use and widely valid, being especially resistant to unusual observations.